NSF INCLUDES DDLP: EMERGE in STEM (Education for Minorities to Effectively Raise Graduation and Employment in STEM

EMERGE in STEM (Education for Minorities to Effectively Raise Graduation and Employment in STEM) is a NSF INCLUDES Design and Development Launch Pilot. This project addresses the broadening participation challenge of increasing participation of women, the at-risk minority population, and the deaf in the STEM workforce. The project incorporates in and out-of-school career awareness activities for grades 4-12 in a high poverty community in Guilford County, North Carolina. EMERGE in STEM brings together a constellation of existing community partners from all three sectors (public, private, government) to leverage and expand mutually reinforcing STEM career awareness and workforce development activities in new ways by using a collective impact approach.

This project builds on a local network to infuse career exposure elements into the existing mutually reinforcing STEM activities and interventions in the community. A STEM education and career exposure software, Learning Blade, will be used to reach approximately 15,000 students. A shared measurement system and assessment process will contribute to the evaluation of the effectiveness of the collective impact strategies, the implementation of mutually reinforcing activities across the partnership and the extent to which project efforts attract students to consider STEM careers.